Coupled Modelling of the Arctic Ocean-Atmosphere-Ice System

This proposal is part of a systematic study of the Arctic environment and its role in global change promoted by NSF's Arctic System Science Program. It is a three year project to investigate equilibrium arctic climates simulated by state-of-the-art computer models for the global atmosphere, the Arctic Ocean and arctic sea ice. A sequence of simulations and analyses will be performed with uncoupled, partially coupled, and fully coupled model systems. This research effort will use existing data sets to simulate the present-day arctic climate and the climate of an enhanced greenhouse scenario. Processes and feedbacks intrinsic to the Arctic, and neglected or poorly resolved in previous studies, will be evaluated in detail.